Math/Science Enhanced Manufacturing Technology Training for Females and Minorities

9453921 Amara A pilot manufacturing laboratory facility has been established at Minuteman Science and Technology High School. A formal three year curriculum in manufacturing technology has been developed. This project will over the next four years develop an integrated manufacturing instructional model for thirty (30) women and minority teachers grades 6-12. Participants will be introduced to the project via 3 seminars held in the spring. The seminars will be on equity issues, manufacturing technology and each summer over the life of the project the participants will receive an intensive three (3) week workshop on current trends and practices in manufacturing. Topics include automation, electronics, mechanics and bio manufacturing. Emphasis will be placed upon integrating mathematics and science, the importance of communication and human relations, technology skills related to manufacturing, career awareness, hands-on activities appropriate for junior and senior high student. Each academic year the original thirty teachers will acquire more complex integrated math/science and technology skills coupled with specific workshops on women and minority issues as they begin to develop integrated projects suited to their teaching environment. The project emphasizes a realistic view of science and technology as problem solving activities which require skill in collaboration, experimentation, writing, computing and the pursuit of exploration. The amount requested is $361,116 for 54 months with cost share of $815,179.